Conference: Geometry and Dynamics: Computer-assisted Proofs

This award supports participation of US based mathematicians in the conference ``Geometry, Dynamics, and Computer-Assisted Proofs" at Heidelberg University June 10--12, 2026. The conference will bring together researchers and students from the fields geometry, dynamics, and geometric group theory with mathematicians who have been at the forefront of computer-assisted proofs in these areas. The conference will facilitate the exchange of ideas, the exploration of computer-assisted proofs and promote collaboration between experts in fields. The conference will also reinforce cooperation between the US and European mathematical communities.

The fields of geometry, dynamics, and geometric group theory have become increasingly intertwined over the past few decades, with deep connections emerging between their fundamental structures and techniques. At the same time, computer aided proofs have grown into a powerful tool in mathematical research, beginning with Haken's groundbreaking resolution of the four-color problem. This conference seeks to bring together researchers and students from these fields to explore their rich interplay and the ways in which computational methods can advance our understanding of key problems. The conference will feature 15 research talks, lightening talks for junior researchers, and breakout sessions for discussing new research directions. This will promote the development of graduate students and postdoctoral researchers and strengthen the networks that connect mathematicians in a wide range of fields. It may also inspire the broader application of computer-assisted research and improve the infrastructure that this requires. The URL for the conference website is https://sites.google.com/view/rich-problems.